Investigation and Modeling of Processes for VLSI

Efforts are underway to model critical elements of silicon and other semiconductor fabrication technologies. In particular, optical lithographic techniques in the submicron range will be studied, and the oxidation procedures in silicon technology as they pertain to VLSI and submicron features will be examined.